NeTS-FIND: Sensor-Internet Sharing and Search

Sensor networks today are many wireless islands, each isolated and connected through the Internet to its owner, not easily usable by others. The goal of NeTS-FIND: Sensor-Internet Sharing and Search (SISS) is to allow owners to easily bridge these sensornet islands, sharing their data with anyone on the Internet, and to help guests discover and explore these shared sensor data. This research therefore seeks to meld evolving sensornet and Internet architectures, with new approaches to:

a. allow easy integration of new sensornets into the Internet and integration of sensornets bridged by the Internet;

b. manage disclosure of sensor data, supporting confidentiality, estimates of data quality, and visualization of trends;

c. support sensor discovery, linking and search.

The results of this work are expected to include new protocols for sharing sensor data streams, for archiving sensor data on the Internet, and for letting users search, aggregate, and process these streams. The PIs will explore this research by designing new algorithms, evaluating them through simulation and prototype implementation. The PIs expect to specify the protocols and elements that enable this work, enabling future optimization of individual components.

Beyond the immediate impact of this research, the goal of this research is to enable the "citizen scientist", allowing amateurs to contribute sensor data and process sensor streams.